Traditional Knowledge in a Changing Arctic: Gathering, Preservation, and Sharing of the Yup'ik Way of 'Being'

OPP-9909945

"Traditional Knowledge in a Changing Arctic: Gathering, Preservation, and Sharing of the Yup'ik 'Way of Being'"

The goals of this project are as follows: (1) to document traditional knowledge; (2) to disseminate that knowledge within the Yup'ik community and between the Native and scientific communities; (3) to provide science training at the local level; and (4) to improve communication between Yup'ik people and social and physical/natural scientists. The Calista Elders Council, a non-profit organization representing the tradition bearers of the Yukon-Kuskokwim delta in southwestern Alaska, will coordinate the collection and sharing of information on a regionwide basis.